S-STEM: Pathways to a Cybersecurity/AI Career

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at the University of Rhode Island. A total of 30 scholars pursuing Master of Science in Cybersecurity will receive scholarships that cover unmet need up to $20,000 for graduate students for up to five years. Scholars will receive faculty mentoring, professional identity development, cohort community-building, career exploration, and an optional bridge preparation for AI coursework.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income graduate students with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in graduate cybersecurity education and other key areas of need. The project will be assessed by an experienced evaluator that will use mixed methods and a quasi-experimental design, including matched comparison groups, interviews, focus groups, and reflective journals and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.